EAGER-TC: Limiting Effect of RAM-Scraping Attacks in DBMSs

This proposal explores effective solutions to RAM scraping attacks in
the context of data management workloads. Recent studies identify
RAM scraping attacks, wherein an adversary installs malware to steal
memory resident data, as one of the major causes of data thefts in
enterprise information systems. Proposed research explores
new vulnerabilities introduced by RAM scraping and develops
practical solutions that offer the right blend of security against such
attacks while keeping performance degradation (due to cost/overhead of
security scheme) within acceptable limits. The research team will explore
realistic attack scenarios, model adversarial capabilities and constraints
for typical DBMSs (e.g., small duration repeated attacks, effects of
buffering and data lifetime, presence of concurrent queries, bandwidth limits,
etc.), design criteria of a risk-aware query optimization that can account
for a variety of disclosure risks emanating from RAM-scraping malwares;
and develop optimization techniques that simultaneously optimize performance
and reduce disclosure risks. Proposed research also explores the threat of
RAM-scraping attacks for the emerging cloud-based data processing frameworks
like MapReduce.

Intellectual Merit: The proposed research represents the first attempt
towards a new direction of research , viz. mitigating impact of RAM
scraping attacks in the context of DBMS workloads, that has not been
addressed by the database research community at large. The proposed
approach of redesigning a query optimizer to explore tradeoffs between
performance and disclosure risks represents a significant innovation in
query processing and memory management in the database management area.
Furthermore, exploration of RAM scraping attacks in MapReduce style
cloud-based data processing frameworks represents new innovation in cloud
security.

Broader Impact: The results of this EAGER grant will help launch a new line
of research within database security community ? viz., risk aware database
management that balances data exposure risks from RAM scraping attacks with
performance degradation in a variety of adversarial settings. The proposed
research could also make a significant impact on the DBMS vendors and data
service providers in the emerging cloud computing framework.

For further information see the project web site at the URL:
http://www.ics.uci.edu/~projects/privacygroup/projects.html